A System for Distributional Archaeological Survey, Mapping, Data Management and Analysis

This action funds a Phase II research project under the National Science Foundation's Small Business Initiation Research Program. In Phase I, Dr. Ebert and his associates examined instrument assisted methods which increase the efficiency of recording the locations and characteristics of archaeological artifacts and features. This work employed the use of electronic distance measurement equipment and portable in-field computers. Associated software was also refined. The team concluded that such an approach held considerable promise. In Phase II this work will be continued and in addition be directed toward devising a total distributional archaeological system consisting of hardware, software and methods for their use in the field and laboratory. These methods will facilitate the acccurate, efficient and theoretically-supported collection of distributional data and its management, representation, mapping, analysis and interpretation. Potentially, it will be widely used by archaeologists in a great variety of field situations.